Dissertation Research: Functional Specialization and Multiple Modes of Production: Qujialing Pottery in the Liyang Plain, China

This project will investigate organizational changes in the pottery production in the Qujialing Culture dated to the late half of the fourth millennium B.C., when a walled town emerged at Chentoushan in the Liyang Plain of the middle Yangtze River basin, South China. The archaeological record from this area indicates that multiple modes of pottery production probably developed during this period, and this development was likely associated with specialization of certain functional types. This study will involve interdisciplinary analysis of poetry assemblages collected from Chengtoushan as well as other contemporaneous sites in the Liyang Plain and surrounding regions.